Mathematical Sciences: Heat Equation Asymptotics with Pseudo Differential Boundary Conditions

This award will support research on heat equation asymptotics with generalized boundary conditions. The boundary conditions will be of Atiyah, Patodi, and Singer type. The research will include a study of the Dolbeault complex for a Hermitian matrix where the structures are not product near the boundary and the eta invariant of a manifold with boundary. The research supported by this award involves aspects of global analysis and spectral geometry. Global analysis attempts to relate topological properties of a space with analytic properties. Spectral geometry studies the relationship between the geometry of a space and invariants of a differential operator defined on the space.